Network Management Tools for End-to-end Performance Measurement

This proposal advocates the research and development of tools and techniques
to detect, diagnose, and correct network faults in local broadcast domains,
whether they are wired (Ethernet) or wireless (802.11b). These tools will
provide the troubleshooter with a useful visual reference for these network
domains and automate element-by-element investigation of performance along a
network path. In addition, the wireless work will provide a standard
authentication platform for both IPv4 and IPv6 wireless clients.